Connection to NSF National Supercomputer Access Network: NSFnet

The Johns Hopkins University will be connected to the Suranet by a 56 kilobit per second dedicated communication line. The connection will be implemented by the Suranet management using the TCP/IP communication protocols suite. This will provide Johns Hopkins University with a medium speed connection to the NSF Backbone network allowing potential access to all six supercomputer centers supported by the foundation. It will also provide an interconnection to other researcher nationwide which will greatly increase the ability of dispered scientific researchers to collaborate on large, multidiscipline research projects.